Mathematical Science: Nonlinear Control Theory: Topics Related to Stabilizability, Observability and Realizability

9403924 Wang/Lin Two major areas within nonlinear control theory will be pursued in this investigation. The first is related to stability and stabilizability of control systems, and the second to observability and reachability. Within the area of stability, the research program will rely upon the integration of three closely related topics with the ultimate goal of developing an understanding of the effect of disturbances on control design. The first topic focuses on the analysis of the stability of general dynamical systems through an analysis of the structure of reachable sets and their prolongations, so that a converse Lyapunov function for general dynamical systems can be developed. The second topic concerns so-called input-to-state stability, and the third topic concerns the development of universal formulae for designing explicit stabilizing feedback laws. The main goal in the second major area of this investigation is to analyze the relationship between different representations of systems. Attention will be focused on clarifying the connections between different notions and results related to observability which have been developed within the frameworks of differential algebra and differential geometry. Also to be investigated are conditions under which a state space system admits integral input/output equations. Roughly speaking, control theory concerns itself with changing the behavior of dynamical systems so as to meet desired performance objectives. The analysis and design of control systems play fundamental roles in manufacturing automation and many other applications. The main issues addressed in this research deal with the problem of stability of control systems subject to disturbances, that is, with the question of how to assure that the quantities of interest ultimately behave in an appropriate manner regardless of the specific nature of the disturbances acting on the system, and with identification of systems, that is, with the questi on of how to obtain models of the system, or "plant", on the basis of data obtained from observations of its operation. ***